Collaborative Research: IEEE IPDPS Conference Student Participation Support

This project will support 25 students to attend the IEEE International Parallel & Distributed Processing Symposium (IPDPS'14) conference in Phoenix. This is a premier international conference in parallel and distributed computing. This will help students develop their technical strength and engage more closely in the parallel and distributed computing community. The workshop will increase the likelihood of these students staying in the research community, and will thus lead to a more talented and more productive research workforce.

The IPDPS 2014 student program will provide a comprehensive venue to better prepare students for research and career paths in parallel and distributed computing. Participating students will have the opportunity to both present their research and interact with senior academic and industry people in an informal setting. In addition, mentoring sessions will be organized to help students improve communication skills, obtain valuable information for career planning, get familiar current research topics, and make valuable contacts, as well as participating in the IPDPS main conference and associated workshops.